Purchase of MALDI-TOF Mass Spectrometer

With support from the Chemistry Research Instrumentation and Facilities (CRIF) Program, the Department of Chemistry at the University of Miami will acquire a MALDI-TOF Mass Spectrometer. This equipment will enhance research in a number of areas including a) electrochemical transformations of fullerenes; b) novel redox self-assembling systems; c) chemical analysis of complex urban aerosols; d) oligonucleotide sequencing and micro-array biochip probe analysis of fungal species; and e) characterization of novel porphyrin arrays.

Mass spectrometry (MS) is a technique used to probe intimate structural details and to obtain the molecular compositions of a vast array of organic, bioorganic, and organometallic molecules. The results from these studies will have an impact in a number of areas including materials chemistry, air quality and biology.